Embryonic Development of the Visual System

The earliest phase of nervous system development is characterized by large scale movements of cells. First, these cells must separate from the outer layer of the early embryo; secondly, they must obtain specific positions within the embryo. To reach these positions, the cells in many cases must migrate considerable distances. Upon reaching their proper location, they become stationary and form stable contacts with each other. It is of great importance to understand on a molecular level how these cellular processes are controlled. This project will use the embryonic optic lobe as a model system to analyze the molecular basis of morphogenetic movements during neuronal development. Using a variety of markers, the position and movement of these cells can be readily followed throughout normal and mutant development. Experiments will focus on the phenotypic and molecular characterization of a gene called sine oculis (so), which is necessary for the development of the optic lobe. Mutations of so cause failure of optic lobe invagination. Most recent analyses show that so encodes a putative transcription factor, that is a protein that is capable of turning on or off the expression of other genes. It is anticipated that the analysis of so and its function during the development of the optic lobe will answer many important questions.